Russian Translation Project, Arctic Anthropology

Funds are requested for a three year Russian translation project to be organized by the international circumpolar journal Arctic Anthropology. There is an urgent need to disseminate the scholarship of Soviet anthropologists working in the Euraisna Arctic and Subarctic. Since only a few Soviet scholars are sufficienty fluent to write for English language journals, important important research contributions are off-limits to all but a few Russian-reading North American scholars. This project hopes to provide systematic coverage of Soviet scholarship, publishing 5-6 papers in each volume over a three year period.